Science Student Internship

This Quality Education for Minorities (QEM) is a one-year Science Student Internship Program designed to provide five talented minority science and engineering students from a select group of colleges and universities with summer internship experiences at the National Science Foundation (NSF), and academic year follow-up activities at the students'home institutions. This science-oriented initiative will be carried out through an expansion of the existing Student Internship Program at the QEM Network. Students will be placed with mentors in the NSF and the QEM Network. This is an opportunity for the students to become familiar with the various agency programs, and gain some understanding of: (a) how science policy is formulated, and how funding priorities are set; (b) how the peer review process works; (c) how agencies receive, utilize, amend agency policies based on external advice; and (d) how interns can increase and continue their own MSE interest and study through the doctoral level.